Implications of Volcanic Ash in the Maya lowlands: Glass Shards in the Pottery Sherds

This award provides support for collaborative
project led by archaeologist Dr. Anabel Ford and volcanologist Dr. Frank Spera.
By uniting disciplines to address an archaeological problem, they will identify
the source(s) of volcanic ash (glass) used as ceramic temper in everyday pottery
of the ancient Maya in the Late Classic Period. The presence of fresh volcanic
ash more than 350 km from any volcano that is consistently discovered in
pottery fragments (sherds) from the limestone Maya lowlands is unexpected. Yet,
since the 1930s, when Anna O. Sheppard identified volcanic ash in Maya pottery,
archaeologists have been aware of the anomaly. The correct identification of the
volcanic ash source(s) will enable these scholars to recover critical evidence
of the cultural, ecological, and environmental influences that contributed to
the rise and fall of the Maya civilization. How did relatively large volumes of
volcanic ash become available for manufacturing ceramic production when all
transport was with human effort? This question has never been answered and the
implications are significant.

This project will use geochemical and volcanological tools to study
the transport, dispersal, and identification of the volcanic glass shards in the
ancient Maya pottery sherds. Examination will include
1) monitoring the effects of firing on the composition of the glass shards in
the pottery sherds;
2) assessment of the elements (major, minor, and trace) and isotopic ratios
(strontium and lead) of glass shards in pottery fragments for fingerprinting
volcanoes;
3) matching the elemental composition of glass shards and associated minerals in
pottery sherds to candidate volcanoes in the Central American Highlands and
Mexican Volcanic Belt;
4) simulating patterns of ashfall dispersal to the limestone lowlands for
candidate volcanoes; and
5) exploring the consequences of volcanic ashfall into the Maya lowland soil,
plant, and animal life.
These data will permit the team to address the implications of volcanic ash on
the cultural development of the Maya and on refining lowland Maya chronology.

While it has been generally accepted that volcanic ash was of non-local origin,
the anomaly of the presence of pristine, fresh volcanic ash has never been
explained. Since the best answer is volcanic ashfall from distant volcanoes, the
solution to the problem requires knowledge of both archaeology and volcanology.
The intellectual merit of this collaboration is that it brings knowledge
generated from NSF funding in distinct fields to a joint solution. The
archaeological implications of the volcanological solution has consequences for
understanding the economy of ceramic production as well as the ecology of the
Maya forest where volcanoes are at a distance.

The broad impacts of the research results promote an innovative approach to
problem-oriented science requiring the full involvement of distinct fields.
Volcanoes are universally recognized as hazards, but at a distance they can
provide benefits such as temper for pottery and amendments for soil. Thus, the
resolution of this archaeological issue will expand our understanding of
society's interaction with their changing environment.